Molecular Symmetry and Dynamics

This project in the Theoretical and Computational Chemistry Program of the Division of Chemistry involves the theoretical investigation of the general rotational and vibrational dynamics of symmetric polyatomic molecules, with particular emphasis on the gas-phase buckminsterfullerenes and their isotopic variants. Considerable use is being made both of group-theoretic techniques and computer-graphic generation of rotational energy surfaces. Predictions are being made about the high-resolution spectra of these molecules. %%% The newly-discovered "bucky-ball" molecule containing 60 carbon atoms is remarkable for its highly symmetrical and nearly spherical structure. In this project sophisticated mathematical techniques and computer graphics are being used to characterize the spinning motions of the molecule and their interactions with light.